Probing and Modelling Electrochemical Interfaces

This project is in the general area of analytical and surface chemistry and in the subfield of electrochemical interfaces. This research continues the Principal Investigator's application of photoelectron and infrared reflection spectroscopies to characterize the structure and composition of the electrochemical interphase. Studies of the electrochemical double-layer employing the electrode emersion technique will be performed in order to clarify fundamental aspects of double-layer structure. These include the role of water in the double-layer, interfacial chi potential differences, absolute half-cell potentials, and reference levels for liquid ESCA. The studies will be correlated with theoretical models of the emersed double-layer. The electrochemical double-layer plays a principal role in determining the kinetics and mechanisms of electrochemical reactions. Removal of a charged electrode from the electrolyte leaves the very thin double-layer region principally intact, while stripping the bulk electrolyte from the surface. This emersion process makes possible determination of the structure and composition of the double-layer by applying surface analytical techniques such as photoelectron and infrared spectroscopies. Measurement of the work function of the emersed electrode surface allows estimation of single electrode potentials.